The Physiological Ecology of Hibernation Among Freshwater Turtles

Ultsch 9603934 Reptiles and amphibians (herps) in the northern portions of their ranges in North America may spend as much as half of their lives hibernating. Aquatic harps avoid freezing by hibernating underwater, but they then must switch from aerial to aquatic respiration, with its attendant physiological challenges. However, there have been no detailed physiological/ecological studies of naturally hibernating aquatic herps, and only two species, both turtles, have been studied extensively during simulated hibernation in the laboratory. We propose to study hibernation and overwintering in northern herps, starting by expanding our previous studies on turtles to include new species and field work. The field physiology and behavior of naturally hibernating painted turtles, map turtles, soflshelled turtles, and snapping turtles from known northern populations in New England will be studied by radiotelemetric tracking. Concurrently, laboratory studies of physiological responses to simulated hibernation will be conducted with all 4 species from northern populations. Data should allow generalizations about physiological/ecological strategies concerning this major portion of the life cycle of freshwater turtles, lay the groundwork for future studies of other harps, suggest general strategies among herps for overwintering, and provide information important to conservation efforts.